Studies on De Novo Purine Biosynthesis

This proposal is to study the enzymes involved in de novo purine biosynthesis and their regulation. There is now genetic evidence that three enzyme activities of de novo purine biosynthesis reside on a single polypeptide chain. The protein has been isolated from a murine lymphoma cell line in low yield and characterized as to size, formyl group donor, trifunctionality, and kinetic mechanism of glycinamide ribonucleotide transformylase (GART). The studies will now be extended to use molecular biology techniques to prepare the human trifunctional protein in high yield from bacteria, to prepare an expression vector to obtain only the GART domain from bacteria and then do site-directed mutagenesis of it, and to try to crystallize both the trifunctional protein and the GART domain to do structural studies in the presence of substrate analogs which are dead-end inhibitors. These carbocyclic nucleotide analogs are being synthesized at present, and will be used to analyze the mechanism of conversion of IMP, the product of the de novo purine synthesis, to AMP and GMP. The activity of AMP and GMP analogs and their 2-deoxy analogs will be used to study the mechanisms of ribonucleotide reductase, RNA polymerase, and DNA polymerase. %%% Synthesis of purines de novo is very important metabolically. While most enzymes catalyze only a single reaction, it appears that three successive reactions, involving transfer of two formyl groups, are catalyzed by the same protein. This protein has been isolated from mouse lymphoma cells, but the yield was very low. Molecular biology techniques will be used to prepare both the trifunctional protein and the GART domain. Residues thought to be important in the GART catalytic activity will be changed to other, known residues, to see their importance. Attempts will be made to crystallize both the entire protein and the GART domain, and studies using substrate analogs will be carried out to determine what the protein and protein fragment look like when they are in their active forms.